IAI Workshop: IAI Research Center on Interannual Climate Variability in Central and Southern South America

Nunez This proposal will assemble a team of scientists for a three day workshop in Argentina to discuss the organization of a proposal to the IAI for a Research Center to investigate the modeling and prediction of the ENSO phenomenon and its regional consequences for Southern South America. The Research Center would consist of the following core institutions: CIMA, the Center for Marine and Atmospheric Research of the University of Buenos Aires in Argentina; CPTEC, the Center for Weather Prediction and Climate Studies of the National Space Research Institute of Brazil; the Cooperative Institute for Climate Studies of the University of Maryland; and the Cooperative Institute for Research in the Environmental Sciences of NOAA in Colorado. This proposal explicitly includes participants from Argentina, Brazil, and the United States. The workshop will also include other participants from Uruguay and Paraguay. These countries are all members of the IAI, an initiative to stimulate global change research among the scientific institutions of the Americas. The National Science Foundation is the designated U.S. Government agency to carry out the U.S. responsibilities within the IAI. %%% This proposal will assemble a team of scientists for a three day workshop in Argentina to discuss the organization of a proposal to the IAI for a Research Center to investigate the modeling and prediction of the ENSO phenomenon and its regional consequences for Southern South America. The Research Center would consist of the following core institutions: CIMA, the Center for Marine and Atmospheric Research of the University of Buenos Aires in Argentina; CPTEC, the Center for Weather Prediction and Climate Studies of the National Space Research Institute of Brazil; the Cooperative Institute for Climate Studies of the University of Maryland; and the Cooperative Institute for Research in the Environmental Sciences of NOAA in Colorado. This proposal explicitly in cludes participants from Argentina, Brazil, and the United States. The workshop will also include other participants from Uruguay and Paraguay. These countries are all members of the IAI, an initiative to stimulate global change research among the scientific institutions of the Americas. The National Science Foundation is the designated U.S. Government agency to carry out the U.S. responsibilities within the IAI. ***